Algorithms for Graphs, Matroids and Crossing Set Families

This project is on the design of efficient algorithms for combinatorial problems on graphs. A major focus is on crossing families. Such families are exemplified by the minimum cuts of a graph; problems involving minimum cuts include issues of edge connectivity, graph augmentation and orientation, feedback sets on planar graphs and others. The first part of the project is to develop a compact representation for crossing families. Many problems on crossing families can be solved using the framework of submodular network flow. Currently algorithms for submodular flow run in high-degree polynomial time. An important goal of the project is to make such algorithms more efficient. One of the main tools to achieve the goal will be the new representation - it allows the efficient computation of information commonly needed for submodular-flow type algorithms. Crossing families also arise in the study of graph rigidity and scene analysis. The project will develop efficient algorithms for applications in these areas and others. Related issues in the study of graph connectivity; and optimization on matroids will also be investigated. The goals of this project help increase knowledge about succinct representation of information and efficient computation on discrete structures.